POWRE: Infrared and Nuclear Magnetic Resonance Studies of the Manganese Stabilizing Protein in Photosystem II

MCB-9973324
Roseann Sachs
POWRE: Infrared and Nuclear Magnetic Resonance Studies of the Manganese Stabilizing Protein in Photosystem II.

1. Technical Abstract

Photosynthetic oxygen evolution is the process by which light energy is
used to convert water to molecular oxygen. Photosystem II is the
multisubunit enzyme directly responsible for this oxidation in plants, green
algae and cyanobacteria. The core of the oxygen-evolving complex is a
cluster of four manganese atoms, which accumulate the four oxidizing
equivalents necessary for the oxidation of water. Current efforts are
underway to understand the nature of ligation to the manganese cluster, the
structures of the Mn cluster in the various oxidation states and the exact
mechanism of water oxidation. Three extrinsic proteins, having molecular
weights of 18,24, and 33 kilodaltons are directly involved in enzymatic
activity and stability. The largest of these is also called the manganese
stabilizing protein (MSP) and plays an important role in stabilizing the
active site. However, the exact nature of its role is unknown. One
currently held theory is that MSP may sequentially deprotonate and protonate
during photosynthetic water oxidation. Such deprotonation reactions could
play a role in the stabilization of charge separated transition states in
the manganese cluster, thus lowering the activation energy for water
oxidation. In order to shed further light on the role of this protein in
oxygen evolution, an isotopically edited version of MSP will be prepared.
Light minus dark difference infrared spectroscopy of photosystem II
complexes containing either isotope-edited or native MSP will be used to
probe for the changes that occur in this specific protein as the light
induced reactions take place. Finally, solid state nuclear magnetic
resonance spectroscopy of these labeled complexes will be used to shed
further light on the changes that occur in the manganese stabilizing protein
as photooxidation occurs. Under the POWRE program, the PI will spend a
sabbatial leave to undertake this study in the laboratory of Bridgette Barry
at the Unversity of Minnesota. The experience so gained will be integrated
into both research and teaching by the PI at the Colorado College.

2. Non-technical abstract

Photosynthesis is the means by which a plant converts solar energy into
chemical energy. Although the process has been studied extensively, the
molecular details are still far from being completely understood.
Determination of the mechanism of photosynthesis is very important due to
our global dependence on solar energy for both energy and food. It is also
the ultimate hope that a better understanding of the natural system will
inspire the construction of devices that can mimic the biologicial system
and efficiently use solar energy for human use. The plant uses light to
convert carbon dioxide and water into glucose and oxygen in two distinct
phases. The first phase is often referred to as the "light reactions." In
these reactions, the plant converts light energy into chemical energy stored
in the plant, and water into oxygen. In the second phase, the chemical
energy stored in the plant is used to convert carbon dioxide to glucose annd
other carbohydrates. These reactions can occur in the absence of light and
are referred to as the dark reactions. A large protein complex called
Photosystem II is primarily reponsible for the "light reactions" in plants.
It contains chlorophyll, a cluster of four manganese atoms, and a number of
large proteins and other important molecules. The purpose of my work will
be to gain more insight into the environment and structure of the manganese
cluster and the surrounding proteins as it undergoes these "light
reactions", and to integrate the knowledge so obtained into the teaching activities
of the PI.